CAREER: Homeostasis, Circadian Rhythmicity and Behavior

Refinetti 9507452 Physiological variables such as body temperature are normally buffered against changes by homeostatic regulatory responses. However, there is a normal daily fluctuation in body temperature that is driven by a circadian biological clock. It is presently unclear how the clock mechanism interacts with the systems that normally keep body temperature constant in order to produce the daily temperature fluctuations. With this CAREER award, Dr. Refinetti will lead a research team of undergraduates to investigate the interactions between the brain's circadian clock and the thermoregulatory system. He will also devote time to the development of an integrated teaching program in biological psychology. ***